HCC: Designing Technologies to Facilitate Independent Abuse Reporting for Adults with Intellectual and Developmental Disabilities

Over 7 million people in the U.S. have intellectual and developmental disabilities (I/DD), such as Down Syndrome, Williams Syndrome, autism, and others. These disabilities impact their ability to learn, reason, solve problems, and learn social or life skills. These factors, in turn, mean abusers may manipulate or prevent people with I/DD from reporting abuse. Further, current systems for reporting abuse to state adult protective services agencies are difficult for people with I/DD to navigate. This project's goal is to empower people with I/DD to report abuse through developing novel mobile computing systems that align with their capabilities and support their independence, privacy, and agency. Through this, the work will advance methods for working with I/DD people and understanding their needs, along with advancing knowledge of designing usable interfaces for authentication and communication. The findings will also inform the design of technologies to improve people's safety in a variety of abusive situations (e.g., intimate partner violence, neglect, exploitation, and others).

The technical aims of the project are divided into three phases. The first phase focuses on understanding the current ecosystem around abuse reporting, through interviews and surveys that include people with I/DD, their caregivers, and people who work at adult protective services agencies. The second phase will involve designing an augmented and alternative communication (AAC)-based system for accessible abuse reporting for people with I/DD, protected by a novel authentication mechanism specifically designed for the capabilities of people with I/DD. The third phase will entail developing a prototype of this abuse reporting system and conducting a four-month-long pilot study to evaluate the prototype's usability, accessibility, and user experience. This research will also support the training of PhD students at the intersection of accessibility, design, and cyber-security at the University of Rhode Island.